Nonconvex Homogenization and Applications

This award will support research on a challenging class of mathematical
problems in the field of nonlinear homogenization. Specifically, the project
is concerned with the study of the effective or "homogenized" behavior of
finite elastic composites such as elastic foams or particle-reinforced rubber.
These are heterogeneous material systems that are characterized by nonlinear
and in fact nonconvex local energy functions. The key idea is to make use of
available homogenization estimates for suitably chosen "linear comparison
composites" to generate corresponding estimates for the nonlinear composites.
This is an idea that has been pioneered with success by the PI in the
context of nonlinear problems with convex energy functions
(e.g., plasticity, nonlinear conductivity, etc.). By suitably enlarging the
class of "trial" linear comparison media, a generalized version of the method
will be developed that will be suitable for nonconvex problems.

The objective of this research is thus to develop mathematical methods for
estimating the macroscopic behavior of nonlinear elastic composite materials
that are subjected to finite deformations. The work will be directly relevant to a
range of technologically important material systems, from the commonplace,
such as elastomeric foams, to the more sophisticated, such as shape-memory
alloys. In particular, the work will focus on models for particle-reinforced elastomers
(e.g., carbon-black filled rubbers) and porous elastic solids (e.g., polymeric foams).
As a result, effective estimates for the response of such materials will be produced
that are easy to use by the engineering community and that can be compared to
experimental studies.